Petrologic and Structural Analysis of the Tantato Domain, Saskatchewan: Implications for the Evolution of the North American Craton

The Snowbird zone is a major structural break crossing North America from the Rocky Mountains to Hudson Strait, it marks the boundary between the Rae and Hearne Archean provinces and may represent the suture along which these ancient provinces (micro- continents?) were attached. This project is part of a collaborative research program with the Geological Survey of Canada. It will focus on the metamorphic and structural history of the tantato domain, one of the best exposed parts of the Snowbird deformation zone, in northeastern Saskatchewan. Results from the study of mylonites in the domain should help constrain the relative motions and pressure-temperature conditions during the deformation that produced the Snowbird zone, and therefore help understand its significance in the Archean development of North America.